Undergraduate Laboratory for Control Systems Design

Undergraduate students studying control theory have difficulty connecting the abstract and fundamental notions presented in the classroom with the practical reality of what processor system their design is to control. Although students gain facility in mathematical analysis, they lack the physical intuition on how to pose a control problem, how to model the system, how to determine which types of measurements are necessary and available. An undergraduate control systems laboratory consisting of six experimental stations will address this deficiency. Each station will include a microcomputer with analog interface boards for data acquisition and for implementation of control. The computer will be used first in the identification of a suitable model for the system, then as a design, simulation and display device using the Matlab CAD package and finally as the actual implementation of the control law when interfaced with the physical system. Experiments include DC motor control, coupled tanks, and the inherently unstable system of balancing a ball on a tiltable beam. The lab will be used in two senior level courses and by students who wish to work on control systems for their senior design projects. The wide range of physical phenomena afforded by the experiments will give students experience in handling different types of problems, from a point that precedes the typical textbook setting, through the actual implementation and performance. By requiring the student to model and control a physical system, students should gain a better understanding of the underlying theory; through there use of the CAD tools, they should be able to design better control systems, and be better prepared to face the demands of new technologies.